Characterization of Quantum Drops for Optical Applications Using Scanning Tunneling Microscopy

This effort relates to the development of devices for optical communications and optical signal processing and emphasizes the size of the devices and the ability to deal with these small sizes in a convenient way.